Stratifications and Ends of Spaces

Topology, as a branch of geometry, seeks to classify, characterize and
explore those abstract spaces known as manifolds. Manifolds are locally
like ordinary euclidean spaces(the line, the plane, etc.); however, they
are allowed to have global twisting, curving and holes (e.g., circles,
spheres, tori). They arise in many models of physical and biological
phenomena. Manifolds with singularities, or stratified spaces, are even
more ubiquitous as they appear as solution spaces of algebraic and
differential equations and as limits, degenerations and compactifications
of manifolds. Hughes has made a breakthrough in the understanding of
topologically stratified spaces by establishing a theory of the
neighborhoods of the singularities. This allows one to use geometric
techniques almost as if the singularities were not present. The current
project is largely concerned with exploiting this technique to further
the understanding of manifolds with singularities. As an example, Hughes
will investigate the extent of periodicity near the singular sets.

The proposed research concerns the topology and geometry of manifolds,
stratified spaces, trees and metric spaces. The investigations are in
the areas of stratified spaces, trees, ultrametrics and noncommutative
geometry and the fundamental theorem of algebraic K-theory. The main
tools are controlled topology, surgery theory and C*-algebras of groupoids.
Specific questions concern periodicity in the neighborhood of the singular
set of a manifold stratified space, the classification of stratified
h-cobordisms and stratified pseudoisotopies, and non-locally flat topological
embeddings. In addition, techniques from noncommutative geometry will be
applied to study the geometry of infinite trees and other non-compact spaces
at infinity.